Doctoral Dissertation Research: Landscape Transformation in Aztec and Spanish Colonial Periods in Central Mexico

9304957 BUTZER The need for clearer understanding of the complex ways that humans have altered and responded to changes in their natural environments has become more important as increasing attention is devoted to understanding the complex dynamics of global environmental change. The relative ecological impact of indigenous and early colonial land use has been a matter of controversial discussion in recent years, with special attention having focused on the degree to which native people altered the environment and the nature of the impact that early European settlers had on natural systems. This doctoral dissertation research project will examine landscape changes over the last millennium in the Texcoco region of central Mexico, with emphasis given to the land-use changes and environmental impacts from late prehistoric times through the period of Spanish conquest and colonization. A major goal of the project is explanation of the causes and antiquity of eroded landscapes and evaluation of changes in stream networks. Through archival and field work, data will be gathered from a variety of different sources, including historical written and pictorial documents; field surveys; interpretation of aerial photography; and sedimentological, stratigraphic, chemical, palynological, and radiocarbon analyses of soil samples. A primary hypotheses being tested by the investigator is the conjecture that the main causes of landscape evolution, soil erosion in piedmont areas, and alluvial accumulation in lake margins were rapid increases in population levels and the intensity of land use during Aztec dominance followed by the abandonment of lands and introduction of new forms of land use during Spanish colonial times. This project will use an integrated methodology to explain the relative environmental implications of both indigenous and colonial land-use systems. In addition to enhancing understandings of the historical evolution of land-use change under differe nt cultural and economic regimes, thereby expanding general knowledge about the human dimensions of global environmental change, the project will record human and natural features in the landscape that are being destroyed by contemporary urbanization and mechanized agriculture. As a doctoral dissertation improvement award, this award also will provide support to enable a promising student to establish a strong independent research career. ***